U.S.-Brazil Cooperative Research: Near-Threshold Electron-Molecule Collision Dynamics

0128851
McKoy

This Americas Program award will support Dr. Vincent McKoy of the California Institute of Technology in collaboration with Dr. Marco A. Lima of the Universidade Estadual de Campinas, Brazil and Dr. Marcio H. Bettega of the Universidade Federal do Parana, Brazil. The aim of the project is to determine why the differential elastic cross sections obtained from high-level calculations using a number of methods exhibit, within certain ranges of collision energy and scattering angle, surprisingly large deviations from recent experiments.

The calculations will produce very valuable data, adding significantly to the knowledge of electron scattering from a handful of technologically and fundamentally important molecules. The project also promotes education and training by providing an opportunity for Brazilian graduate students in the physical sciences to gain experience with the application of large-scale parallel computation to scientific problems.